Post-Disaster Sheltering and Housing of Hispanics, The Elderly, and the Homeless

This project focuses on lessons that can be learned from the October 17, 1989 Loma Prieta Earthquake. The project will be a longitudinal, comparative case study of sheltering and housing in the aftermath of the earthquake. It will specifically address the sheltering/housing needs and problems of low- income Hispanics as compared to a non-Hispanic community. The methodology will be based on in-depth interviews with local, state, and federal officials and within Hispanic community organizations. All phases of post-disaster sheltering and housing will be studied. The study sites will be Watsonville and Santa Cruz, California.